Mathematical Sciences: Control of Distributed Parameter and Hereditary Systems with Applications to Large Scale Aerospace Structures

This research is concerned with developing the mathematical theory of control of partial differential equations and hereditary systems appropriate for applications to large elastic structures. This work will clarify a number of issues associated with active control of large aerospace structures such as space antennas and platforms and wings of high performance aircraft. Since the aerospace structures under consideration are spatially distributed, they are inherently infinite dimensional. As such, their proper modeling and analysis requires partial differential equation techniques. This research seeks to develop control strategies by direct studies of various appropriate infinite dimensional models. It is a broadbased program, ranging from theoretical studies of distributed and delayed controllers to practical construction of numerical algorithms for feedback stabilization of vibration, flutter, and rigidity.